Mathematical Sciences: Some Natural Problems in Complex Geometry

Professor Yau will study several fundamental problems in complex geometry including solutions to the complex Plateau problem and the embedding problem for three dimensional CR manifolds. He will also try to extend previous work on finite dimensional Lie algebras and isolated hypersurface singularities to higher codimension singularities. This award will support research in three basic areas of complex differential geometry. The complex Plateau problem is a geometric minimization problem. The goal of the proposed research is to classify those real odd-dimensional real submanifolds which are boundaries of complex manifolds. This work is closely connected to research on CR manifolds - spaces which usually occur as subspaces of complex space. Although most of the work which will be supported by this proposal falls into the area of what has been called "pure mathematics", much of Professor Yau's work in this field has found application in control theory and filtering. The work thus serves as a reminder of the link between basic research and application.